Hadronic Interactions

PHY-0099729
W. Gibbs
New Mexico State
Several studies will be undertaken in order to understand the interaction between hadrons in a nuclear setting. It is intended to test the idea that the same effective potentials which are used for interactions between nucleons can be used for interactions between other hadrons. Cases to be considered include proton-proton, pion-nucleon, nucleon-nucleon, lamda-nucleon, and pion-pion interactions.